Computer-Based Strategies for Improving Student Biology Achievement

This project will establish a model program of collaboration between The University of Michigan and regional public schools designed to train secondary science teachers in the development and use of computer-based strategies that are aimed at improving overall student biology performance as well as eliminating the achievement gap exhibited by underrepresented minorities. While it is understood that computer technology is not the sole remedy for our current problems in science education, it is known that the educational use of computer technology can make a significant difference in student performance, and that this potential has barely begun to be tapped by U.S. schools. The approaches to be employed in this project are based upon the results of a five-year study of educational computing and student performance carried out by the principal investigator at The University of Michigan. This study, which was initially motivated by the underperformance of Black and Hispanic students in introductory biology, led to the development of flexibly-paced computer exercises that use diagnostic feedback to inform the learner about the reasoning underlying both correct and incorrect responses. Use of this new software led to a dramatic improvement in overall class performances, as well as elimination of the performance gap previously seen with minority students. By training public school teachers in the development and implementation of such strategies, the project is thus intended to increase the computer skills and subject matter expertise of secondary science teachers while simultaneously producing instructional materials of proven ability to enhance student performance. An amount equivalent to 143.2% of the NSF award is being contributed as cost-sharing.